Joint Workshop in Algebraic Geometry; Rio de Janeiro, April 16-20, 1990 (Brazil STI)

This U.S.-Brazil Science and Technology Initiative (STI) award will support a program planning workshop in the area of algebraic geometry. The purpose of the workshop, organized by Professor Steven Kleiman of MIT and Professor Felipe Voloch of IMPA, Rio de Janeiro, is to stimulate cooperative research between U.S. and Brazilian mathematicians. As such, the workshop will try to address the following topics: diagnostic of on-going research efforts in both the U.S. and Brazil in the area of algebraic geometry; identification of areas of common interests and likely future collaborators; and organization of joint planning activities for cooperation in the short, medium, and long term.